11th Annual Southwest Regional Developmental Biology Conference, May 14-16, Kingston, OK

The Eleventh Annual Southwestern Developmental Biology Conference will be held May 14-16, 1993 at the University of Oklahoma Biological Station located on Lake Texoma near Kingston, OK. The meeting is sponsored by the Society for Developmental Biology, which states in its guidelines: "Regional meetings are an important activity of the Society for Developmental Biology... The function of the Regional Conference is to provide a more informal opportunity than national meetings for the exchange of information on development. Participation by graduate students, postdoctorals and junior faculty is particularly encouraged..." The meeting to be held at the University of Oklahoma Biological Station will adhere to the goals outlined above. For this conference, four prominent speakers (Drs. Randall Moon, Raymond Runyan, Helen Hathaway, and Gary Wessel) have been invited to present papers related to the following theme: "Cellular Signalling and Recognition in Development". To complement these invited talks, developmental biologists, as well as cell biologists working on developmentally-related problems, from the Southwest will be encouraged to present recent and preliminary findings on the meeting topic, or on any other field of developmental biology. We will seek especially to encourage and promote graduate students and postdoctoral fellow participation in the scientific program by providing financial support to cover the costs of registration, housing, and travel wherever possible. The conference format will thus give developmental biology students in the Southwest an excellent opportunity to give a talk, interact with a variety of active investigators in developmental biology, and gain a better understanding of the developmental biology research being pursued in their own geographic region.